MRI: Acquisition of a Variable-pressure Scanning Electron Microscope for Interdisciplinary Teaching and Research at the University of Minnesota-Duluth

This project acquires a variable-pressure scanning electron microscope (SEM) for research and education in the earth sciences, biology, and engineering. This instrument will be used for advanced morphological, textural and compositional characterization of materials. With the ability to work under both low- and high-vacuum, the variable-pressure SEM allows for imaging of both dry materials and wet biological samples. In addition to back-scattered and secondary electron detectors, the instrument will be equipped with an energy-dispersive x-ray analysis system (EDS), cathodoluminescence imaging system (CL), electron back-scatter diffractometer (EBSD), and low-vacuum secondary-electron detector (ESED). In terms of broader impacts, this instrument will be the first of its kind in northern Minnesota. It will be used extensively for student research and education, as well as development of industry partnerships.